Center for e-Design: IT Enabled Design and Realization of Products and Systems

This action adds Virginia Polytechnic Institute to the Industry/University Cooperative Research Center for e-Design and Realization of Engineered Products and Systems as a research site. The University will develop a set of coordinated tools and practices that support conceptual design and system/product requirements specification, as well as the development of a conceptual model that can be used to support iterative conceptual design.